CAREER: Language-based Distributed System Security

CNS-0346939
CAREER: Language-based Distributed System Security
Stephan A. Zdancewic

Distributed systems are an increasingly crucial part of modern
computing infrastructure, yet the existing technology for ensuring
their security and reliability is lacking. This research addresses
the problem of building distributed systems and reasoning about their
security by developing programming languages that provide better
abstractions for describing security policies and communication
protocols.

The starting point for this project is existing work on security-typed
languages, which protect data confidentiality and integrity. This
research generalizes these information-flow policies to make them more
dynamic, enabling them to accommodate the changing environment in which
distributed systems run. For example, dynamic information-flow
policies should integrate cleanly with traditional authentication and
access control mechanisms to provide end-to-end guarantees about data
confidentiality.

The second stage of this project is to develop language technology
that applies dynamic security policies to distributed programs. The
idea for this part of the research is to develop a theoretical basis
for secure distributed computing using existing process calculi
augmented with a heterogeneous trust model and the policy language
outlined above. In this setting, types describe communication
protocols, properties of which can be verified statically by the
compiler. The result will be a programming language with a sound type
system that aids the programmer in writing correct, security-critical
distributed programs.